Micromechanical Regulation of Sperm Motility in Cervical Mucus & Other Biopolymers

This project applies both theoretical and experimental fluid mechanics and rheology to a fundamental problem in the biology of sperm motion and eventual fertility. The problem involves the interaction of swimming sperm with biopolymeric fluid secretions found within the female reproductive tract, primarily cervical mucus. Spermatozoa must successfully migrate through such biopolymeric gels in order to reach the egg. At present, relatively little is known about the fundamental mechanics of the sperm-mucus interaction: i.e. of the material properties of mucus which sperm experience; and of the hydrodynamics of sperm swimming in such obviously non-Newtonian fluids. The proposed project, in order to address an important biomedical question, will undertake studies that address these two questions.